The Pixon Method of Interferometric Imaging

ABSTRACT
9819807

The Pixon method of image processing will be applied to interferometric imaging for radio astronomy. Pixon software will be developed for the AIPS++ radio astronomy software package. The method will be optimized for speed and applied to real interferometric data for comparison with existing techniques. At the end of the project Pixon code is to be available for distribution to the scientific community.